Efficient Solution of Advection Dominated PDE Constrained Optimization Problems

The aim of this proposal is to develop, analyze and implement optimization
algorithms that integrate multilevel iterative solvers, adaptive mesh refinement methods,
and so-called `all-at-once' methods for the solution of optimization problems
governed by advection dominated partial differential equations (PDEs).
The presence of strong advection in the governing PDE creates many challenges for
the numerical solution of these optimization problems, beyond the challenges already
encountered in the numerical simulation of single advection dominated PDEs and beyond
the many difficulties in solving PDE constrained optimization problems with weak or no advection.
One reason for the additional challenges arising in the optimization context is the presence of the
so-called adjoint equation, which is also an advection dominated PDE, but with advection
given by the negative of the advection in the governing equation. This can cause significant
and perhaps unexpected differences in the behavior of discretization schemes and iterative
solvers when they are extended from the application to single advection dominated PDEs
to the solution of PDE constrained optimization problems. This research will analyze
the sources of these differences, their impact on the quality of computed solution
and on the efficiency of solution algorithms. Another goal is to devise modifications of
multilevel iterative solvers, adaptive mesh refinement methods, and so-called KKT solvers to
make them robust against the presence of advection.

Many important real-life applications such as the shape optimization of technological devices,
the optimal control of systems, and the identification of parameters in environmental
processes lead to optimization problems governed by systems of advection dominated
partial differential equations. This research addresses mathematical and algorithmic
issues that are crucial for the reliable and efficient solution of these problems. It will lead
to a better theoretical understanding of the solution properties of these optimization problems
as well as to new computational tools for their reliable and efficient solution. Furthermore,
it will provide training opportunities for students in an important area of computational science.